Reducing Contextual Bias In Performance Appraisal

Abstract
***
0011132
Douglas H. Wedell

There is widespread use of assessment tools in our society. Performance
appraisal is one such tool that serves as a basis for important personnel
decisions, such as allocation of raises or recommendation for promotion or
termination. Because performance appraisal strongly relies on subjective
judgment, it is susceptible to systematic biases or distortions. One such
bias that has been repeatedly demonstrated in performance appraisal is
contextual contrast. This bias consists of the tendency to rate a person's
work performance higher after assessing other employees with poorer work
records than after assessing those with better work records. Such contextual
dependency represents a serious source of error in assessment, threatening its
reliability and validity.

This project explores different procedures designed to reduce or eliminate
contextual contrast in performance appraisal and thereby create more reliable
and valid assessment techniques. Materials consist of performance profiles of
hypothetical employees that include information on several facets of their
work records. In each experiment, the contrast bias is induced by having
participants evaluate different sets of materials prior to assessing a core
set of materials. The aim of the research is to develop assessment procedures
that will produce the same judgments of core materials across different
contexts. These procedures include manipulating category labels, types of
judgments, and training methods. Experiments will test the degree to which
including clear examples for the different category levels will reduce
contextual bias. Additional experiments will test the efficacy of two
alternative judgment tasks, comparative and similarity judgment, for
eliminating contrast effects. Finally, another series of experiments explores
the potential for different training regimens to eliminate contextual bias.
The aim of this research is to develop procedures that could be implemented in
business, education, and government to produce more reliable and valid
assessments.
***